Seventh International Conference on Precipitation: Observation, and Prediction of Precipitation Variability - June 30-July 3, 2001

0004240
Eltahir

The Seventh International Conference on Precipitation is being held in Rockport, Maine, June 30 - July 3, 2001. Following the tradition of the previous six conferences, this meeting aims at fostering interdisciplinary interactions between atmospheric scientists, hydrologists, mathematicians, and statisticians. The central theme of the conference will be research issues related to observations, estimation, and prediction of precipitation variability. Particular emphasis is placed on the following topics: (i) application of modern observational techniques, including remote sensing, for precipitation estimation and prediction, (ii) dynamical modeling of clouds and precipitation, and (iii) limits of predictability